Bloomington Geometry Workshop

Abstract

Award: DMS-0107018
Principal Investigator: Christopher M. Judge

The Bloomington Geometry Workshop is the first of an intended
series of regional conferences on geometry. The main purpose of
the Bloomington Geometry Workshop, to be held at the University
of Indiana, is to promote scientific cooperation and
communication between geometers and geometric analysts in a
region including Indiana, Illinois, Kentucky, Michigan, Ohio, and
Tennessee.

Modern geometry addresses problems such as understanding the ways
in which typical spaces are curved and how far from the flat
Euclidean model a space might be, the influence of curvature upon
analysis in a particular geometry, interactions of large-scale
geometry with probability theory and the algebraic properties of
the fundamental group, hyperbolic geometry and the portion of
low-dimensional topology that increasingly depends upon
hyperbolic structures, and gauge field theories and other ideas
from theoretical physics.